Fragmentation of Heavy Nuclear Systems

This grant to the University of Iowa supports the research of Professor Edwin Norbeck in the study of intermediate mass fragmentation resulting from the collisions of high-energy heavy-ion projectiles with massive targets. The grant also supports the development of a specialized forward angle detector array to be used in conjunction with 4Pi detector array at the National Superconducting Cyclotron Laboratory at Michigan State University. This detector will be vital to the fragmentation research and for other experiments as well.